Dystrophin Related Protein and the Blood Brain Barrier

Dystrophin related protein, DRP, is a large, recently identified protein that is similar to dystrophin. Preliminary studies suggest that DRP is specifically localized in the brain to cells associated with the blood-brain-barrier which is critical to maintaining the normal physiological conditions in the brain. Dystrophin is essential to the maintenance of muscle and DRP may well perform a similar, significant role in maintaining the organization of membrane proteins in cells which compose the blood-brain-barrier. High resolution light and electron-microscopic techniques will be applied to characterize the distribution of DRP in the developing and adult brain in vivo. This information will help elucidate the significance of this protein in the establishment and maintenance of the blood-brain-barrier.